New Methods for the Analysis of Ribonucleic Acids

ABSTRACT
CHE-0602413
Limbach/University of Cincinnati

This research project, supported by the Analytical and Surface Chemistry Program, the Instruments for Biological Research Program, and the MPS Office of Multidisciplinary Activities, seeks to develop new and improved methods for the identification and quantification of individual ribonucleic acids (RNAs) present within complex mixtures. Many types of RNAs are involved in key cellular functions in all living cells. Among all known bio-organic molecules within living cells, RNA molecules are the only ones that store genetic information and act as catalysts. In the course of this research, Dr. Limbach and his group at the University of Cincinnati will develop new strategies for the sensitive, accurate, and rapid characterization of RNAs; a database of appropriate signature products for tRNAs from several model systems; new strategies for the relative and absolute quantification of RNAs; and fundamental insights into RNase digestion. These will provide enabling advances for RNA researchers and can be translated to related areas of nucleic acid analysis (e.g., xenobiotic modifications). The project will "bridge the gap" between RNA genomic data and RNA functional studies by readily identifying and quantifying complex mixtures of RNAs. Moreover, it will provide researchers with additional tools that can examine transcription and translation processes, complementing existing genomic and proteomic strategies. Students will be educated and trained in key areas of biological mass spectrometry. Dr. Limbach will strive to expand the number of underrepresented minorities engaged in science in general, and mass spectrometry in particular, and will develop a peer-to-peer mentoring program for young girls to encourage their participation in math and science.